Quasi-Low-Dimensional Ternary Nickel Oxides: Synthesis and and Characterization

This renewal proposal is aimed at the synthesis and characterization of new nickel-based oxides with electronic and structural features common to the copper-based high temperature superconductors. Chemical, electronic, magnetic, thermal, and transport properties will be investigated.